A Radiocarbon Counting Facility for Conventional Dating of Small or Old Age Samples

Dr. Herbert Haas, Director of the Radiocarbon Laboratory at Southern Methodist University's Institute for the Study of Earth and Man, will purchase a low level background liquid scintillation counter. The "Quantulus" will permit increases in both the productivity and precision of the laboratory and permit the dating of both older and smaller samples than is now possible. In the last half decade radiocarbon dating has been revolutionized by the application of a direct counting accelerator technique. However problems entailed by this approach have also become apparent. Sample costs are high and waiting time is long. Dr. Haas has demonstrated that traditional liquid scintillation counting, using a state of the art machine will combine the advantages of accelerator dating with lower cost and shorter turnaround time. He plans to use this machine to examine the issue of the emergence of anatomically modern humans and will date several sites in Europe and the Near East which document this transition. Radiocarbon dating is crucial to archaeological research and Dr. Haas has developed a first rate laboratory which has analyzed archaeologically important samples. The addition of a high precision liquid scintillation counter will increase his contribution as well as permit him to address important specific problems. It will also provide a test case for the utility of the machine.